Mathematical Sciences: Computation in Geometry, Topology andErgodic Theory

The Department of Mathematics at Rice University will purchase the following equipment: one file server, one compute server, two hard disks, one compact disk reader (CDROM), six X- window terminals (one with color monitor), hardware to connect terminals to system, one printer, and the software Mathematica. This equipment will be dedicated to support research in the mathematical sciences. The equipment will be used for projects in Differential Geometry and Analysis by Robert Hardt, Michael Wolf and Robin Forman, Linking Phenomena in Three-Dimensions by Tim Cochran, and in Ergodic Theory and Combinatorial Number Theory by Michael Boshernitzan. The methods employed will stress symbolic, algebraic and graphical computation applied to problems of inherent scientific interest by researchers well-established in their fields.